III: Small: Towards Explainable Recommendation Systems

Recommendation systems are essential components of our daily life. Today, intelligent recommendation systems are used in many Web-based systems. These systems provide personalized information to help human decisions. Leading examples include e-commerce recommendations for everyday shopping, job recommendations for employment markets, and social recommendations to make people better connected. However, most recommendation systems merely suggest recommendations to users. They rarely tell users why such recommendations are provided. This is primarily due to the closed nature algorithms behind the systems that are difficult to explain. The lack of good explainability sacrifices transparency, effectiveness, persuasiveness, and trustworthiness of recommendation systems. This research will allow for personalized recommendations to be provided in more explainable manners, improving search performance and transparency. The research will benefit users in real systems through researchers’ industry collaboration with e-commerce and social networks. New algorithms and datasets developed in the project will supplement courses in computer science and iSchool programs. Presentation of the work and demos will help to engage with wider audiences that are interested in computational research. Ultimately, the project will make it easier for humans to understand and trust the machine decisions.

This project will explore a new framework for explainable recommendation that involves both system designers and end users. The system designers will benefit from structured explanations that are generated for model diagnostics. The end users will benefit from receiving natural language explanations for various algorithmic decisions. This project will address three fundamental research challenges. First, it will create new machine learning methods for explainable decision making. Second, it will develop new models to generate free-text natural language explanations. Third, it will identify key factors to evaluate the quality of explanations. In the process, the project will also develop aggregated explainability measures and release evaluation benchmarks to support reproducible explainable recommendation research. The project will result in the dissemination of shared data and benchmarks to the Information Retrieval, Data Mining, Recommender System, and broader AI communities.